Travel: NSF Student Travel Grant for 2026 IEEE International Symposium on Workload Characterization (IISWC)

International Symposium on Workload Characterization (IISWC) is the premier venue dedicated to the understanding, analysis, and characterization of workloads across all classes of computing systems. This award provides travel support for approximately 15 students attending the 22nd edition sponsored by IEEE Computer Society in September 27–29, 2026 in Boulder, Colorado. IISWC has established a strong track record of scientific rigor and a growing artifact evaluation program that independently verifies experimental reproducibility. Funds will be used to support graduate and undergraduate students, with priority given to first-time conference attendees and those without other sources of travel funding. Providing students with opportunities for participation in research conference can further help enhance their technical proficiency and foster innovation in computing research.